The Development of Cognivive Teaching Strategies for "Uncommitted" Secondary Science Students

This is a one year summer program which will take place in the summer of 1990 and which is being sponsored by the University of Northern Colorado. Its principal goal is to teach 30 high school science teachers teaching strategies based on results of cognitive science research and to use these teaching strategies to teach courses which integrate science, technology and societal issues (STS). The target group for this project are mainly teachers who teach non- science oriented students who, however, will need to understand some science in order to become informed citizens. The four week workshop for teachers selected from around the nation will, (a) provide science content in earth science, life science and physical science, (b) introduce and provide laboratory experiences for an STS curriculum, (c) enable teachers to design their own classroom activities relating to the local STS issues in their communities and (d) introduce the science teachers to the principles of cognitive science and to teaching strategies which have been shown to be effective by cognitive science research. The NSF portion of the project, $154,982, will be matched with $16,750 from the University of Northern Colorado and the participating schools. This is a cost share of about 11%.